Development of Interactive Laboratory-Classroom in Psychology

This project establishes an interactive microcomputer laboratory classroom in psycology. It impacts all majors in psychology exposing students to the use of the microcomputer as an integral part of the research enterprise in psychlogy. Student experiences include the use of microcomputers for programming of experimental contingencies, stimulus presentation, data collection and statistical analysis with human and animal subjects.For those phenomena which cannot ber directly studied, simulation programs are used. Twelve microcomputers and ancillary equipment serve a variety of courses and over 100 students per year. The laboratory is available for advanced student research projects as well. The provision of software for sharing information and documents should impress students with the many effective alternatives for developing research ideas, exchanging experimental data and communicating the results of their research investigations. This new facility represents a critcal and significant new direction in the psychology program. The award will be matched by an equal sum from the grantee. *** //